The Computer Science, Engineering, and Mathematics Scholarship Program

The Computer Science, Engineering, and Mathematics, Scholarship Program at Arizona State University provides scholarships and a support infrastructure that enables academically talented, financially disadvantaged lower division students to maintain fulltime enrollment and progress toward degree completion into upper division status where attrition rates are reduced. Targeted fields include engineering, engineering technology, mathematics, computer science, and computer technology. The program offers a supported summer bridge program for recruited high school seniors (entering freshman) across the state and a variety of carefully designed activities to enhance learning and career opportunities. The program also expands and enhances the continuum of services available to students of diverse gender, ethnic, social, and economic backgrounds, clearly supporting the university's commitment to provide a high quality education to all students.